TC: EAGER: Modularization Supporting Extensibility for an Industrial-strength Theorem Prover

The ACL2 theorem prover has an established user community in industry,
government, and academia. ACL2 supports industrial-scale verification
projects by combining automation and controllability, but its
extensibility is limited: its large (10 MB), complex code base
requires, for soundness, that it be entrusted solely to its two
authors. The PIs propose to modify ACL2 radically, opening up the
system by making it more modular, thus enabling trusted development by
untrusted users while maintaining proof security. Key challenges are
to expose the functionality of system components, and to separate out
a trusted core from code that need not be trusted for correct
functionality, such as code implementing heuristics, I/O, theory
management, and interactive proof development and debugging. Code
refactoring is already a hard problem, especially for a system with
the complexity of ACL2, but in this project there is also the
challenge of making the resulting system modifiable in a way that does
not compromise logical soundness.

Expected results include an ACL2 system that can be modified soundly
by users according to specific needs. In particular, research on
teasing apart inherently sequential output from reasoning code should
support research on parallel reasoning algorithms taking advantage of
modern multi-core machines, leading to formally verified parallel
implementations. More generally, the system will provide a platform
that promotes research in heuristics for automating reasoning. It
will also facilitate the customization of ACL2 for use in the
undergraduate classroom. The resulting system will be freely
distributed on the Internet.